Undergraduate Knot Theory Conference; Granville, OH, July 2009

Abstract

Award: DMS-0852276
Principal Investigator: Lewis D. Ludwig, Colin C. Adams

This grant is to fund the first ever Undergraduate Knot Theory
Conference to take place at Denison University in summer,
2009. Over the last few decades, there has been a dramatic
increase in the involvement of undergraduates in mathematical
research. Knot theory particularly lends itself to this endeavor
since it is highly pictorial, one can easily stated open
problems, and students can get actively involved with examples
from the first day. A variety of Research Experience for
Undergraduate (REU) summer programs have pursued research on this
topic. Moreover, there have been various workshops funded by NSF
and the MAA that have helped undergraduate faculty to pursue
research with students in knot theory.

This conference will bring together a variety of mathematicians
at various stages in their careers: undergraduates who are either
interested or have already done research in knot theory, graduate
students with undergraduate knot theory experience, faculty
members interested in working with undergraduates on knot theory
research, and four senior researchers in the field who will give
plenary lectures. There will be a wide range of talks by the
other participants, some on research and some expository. As a
centerpiece, we will have a collective problem session to give
participants numerous ideas for future research directions. This
conference will provide an opportunity for students to experience
a mathematics research conference that is specifically designed
and directed toward them. Moreover, the conference will
establish a supportive network of students and faculty with an
interest in knot theory research, thus furthering the involvement
of students in the field of mathematics.

http://www.denison.edu/academics/departments/mathcs/unknot